Interagency Working Group on Ocean Observations (IWGOO) Support Office

As the ocean observing community moves forward into the next phase of IOOS, federal agencies remain committed to cooperating among themselves and with partners throughout the ocean community. Coordination among the federal agency partners will remain the responsibility of the (IWGOO) along with NOAA as the designated lead federal agency for IOOS. The IWGOO is a formal chartered body, and will see IOOS through this transition period. The IWGOO decided that some Ocean.US activities would continue under the leadership of the IWGOO. This proposal requests funds for partial support for the Interagency Working Group on Ocean Observations (IWGOO) Support Office hosted at the Consortium for Ocean Leadership.

Broader Impacts

Interagency collaboration is essential to achieve ocean science and technology priorities and, in particular, for planning and coordination of an ocean observation system. The IWGOO support office provides administrative assistance the federal agencies on all of the IOOS planning activities.